SBIR Phase I: Laser Engineered Net Shaping for Injection Mold Tooling Applications

*** 96-61204 Keicher This Small Business Innovation Research (SBIR) Phase I project is an extension of current rapid prototyping technology. Rapid prototyping systems allow manufacturers to reduce design cycle time by producing prototype plastic parts directly from computer generated designs. A related emerging technology, the Laser Engineered Net Shaping (LENS) process, currently being developed at Sandia National Laboratories, has produced near-net-shape functional parts directly from computer generated designs. Commercial use of this technology, beyond the military defense applications for which it was developed, are thought to be possible. Phase will apply this technology to rapid tooling for injection molds by designing a mold for a simple geometry, producing the mold using the LENS process, and then using the mold to actually produce a quantity of plastic parts for evaluation. This technology is thought to have significant applications for commercial utilization within the tooling industry due to its potential of saving time and cost in the preparation of tooling hardware. ***